GOALI: Input-Output Modeling of Nonlinear Systems

The objective of the proposed research is to adapt embedding methods for modeling nonlinear time-series developed by the academic community for their routine use in engineering problems. The specific methods to be employed are based of those developed to model chaotic nonlinear systems. These methods will be adapted so that they can handle nonlinear systems describing input/output data from industrial devices under test. Specifically, current modeling methods developed for automonous systems will be extended to handle systems driven by mixed signals. Input/output systems are fundamental to engineering and industrial applications. Currently, the majority of input/output modeling techniques are designed for linear systems and provide the basis for a wide range of test equipment (spectrum, signal, and network analyzers) and an engineering methodology at the heart of our modern technology based society. However, industrial systems and devices typically exhibit nonlinear behavior when stressed, and industry has a continual need for methods that work when devices are pushed beyond their original design envelope. Therefore, the proposed research will address the generic industrial needs for improved modeling and diagnostics of nonlinear devices based on the latest research from nonlinear dynamics, dynamical systems theory, and nonlinear time-series analysis.